Sensory Transduction of Blue Light in Guard Cells

9311042 Zeiger The goal of this research is to investigate possible roles of carotenoids in blue light photoreception in guard cells. Blue light responses of guard cells include starch hydrolysis, malate biosynthesis, and proton pumping at the guard cell plasma membrane. These processes modulate guard cell osmotic potentials and stomatal apertures that are quantitatively related to incident fluence rates of blue light. A study on guard cell pigments has recently shown that absorption spectra of guard cell carotenoids closely match an action spectrum of the blue light-stimulated increases in stomatal conductances, pointing to a role of carotenoids in photoreception. It is proposed that a carotenoid in the thylakoid membrane can function in two alternative states. At moderate transmembrane potentials across the thylakoid, the carotenoid would operate as an accessory pigment funneling absorbed light energy into photosynthetic reactions. At high transmembrane potentials, the carotenoid would move away from the chlorophyll molecules and, upon blue light excitation, would activate a sensory transduction process leading to typical blue light responses. Initial results supporting this hypothesis include the characterization of intrinsic blue light responses of guard cell chloroplasts, and a specific inhibition of the blue light-stimulated stomatal opening by the inhibitor of zeaxanthin biosynthesis, DTT. In addition, measurements of rates of stomatal conductances, the magnitude of blue light responses of guard cell chloroplasts, and zeaxanthin concentrations in guard cells of F2 plants from a cross between a primitive and an advanced cotton line with contrasting stomatal conductances and blue light sensitivity, showed that plants with high conductances had guard cells with large blue light responses and a high zeaxanthin concentration, and vice versa. The proposed research will use spectroscopic, physiological, biochemical and genetic approaches with guard cell s and coleoptiles, to probe the involvement of a carotenoid, possibly zeaxanthin, in blue light sensory transduction in plant cells. %%% One of the most fundamental responses of a plant to the environment is the response to blue light. Blue light stimulates the growing tip of a young plant to turn and grow toward light, and controls the opening of pores in leaves (stomata) that allow gas and water exchange across the leaf surface. The mechanism by which plant cells sense blue light is not yet understood. As the first step in the response, blue light must be absorbed by a specific chemical photoreceptor, but this photoreceptor has not yet been identified with certainty. Circumstantial evidence has led many investigators in the field to believe that the photoreceptor is a type of organic molecule known as a "flavin". Dr. Zeiger, however, has evidence suggesting that a different class of molecule, a "carotenoid" may, instead, be the blue light receptor. The goal of this research is to determine whether the carotenoid is the real blue light receptor. Establishing the nature of the blue light photoreceptor would be a very important contribution to understanding of this fundamental plant response to the environment.***